Center for Collaborative Adaptive Sensing of the Atmosphere (CASA)

Our ability to monitor, anticipate, and respond to changing circumstances and events is increasingly
important, particularly with regard to our physical surroundings. Nowhere is this capability more vital to
society, or the challenges associated with its practical implementation greater, than in the context of the
atmosphere, where hazardous local weather, such as thunderstorms, tornadoes, microbursts, snow storms,
and floods as well as lofted radiological, chemical and biological agents can, in a matter of minutes or
hours, destroy or contaminate life and property over vast areas. Yet, the portion of the atmosphere that
contains the bulk of both natural and man-made hazards the lower troposphere and particularly the
atmospheric boundary layer is grossly undersampled by today's sensing technologies.
Our ERC proposes a revolutionary new paradigm in which transforming systems of distributed,
collaborative, and adaptive sensing (DCAS) networks are deployed to overcome fundamental
limitations of current approaches. Here, distributed refers to the use of large numbers of
appropriately spaced sensors capable of high spatial and temporal resolution throughout the entire troposphere.
These systems will operate collaboratively within a dynamic information technology infrastructure,
adapting to changing conditions in a manner that meets competing end user needs. These systems will
achieve breakthrough improvements in sensitivity and resolution leading to significant reductions in tornado
false alarms, vastly improved precipitation estimates for flood prediction, fine scale wind field imaging
and thermodynamic state estimation for use in airborne hazard dispersion prediction and other applications.
Successful implementation of DCAS systems will require fundamental breakthroughs consistent with the
NSF Technical Merit Review Criteria. Among these breakthroughs will be integration and sharing of knowledge
across disciplines; design and fabrication of low cost, multi beam, solid state radars; creation of a systems
based architecture to organize sensing, computing, and communications resources; development of
twoway end user interfaces that dynamically target system resources; deployment of integrative test beds to
validate assumptions and understand emergent system behavior; implementation of cross linked hierarchical
data storage and processing; and improved understanding of small scale atmospheric processes.
To achieve these breakthroughs, we have assembled leading engineering and computer science
experts from the University of Massachusetts, Amherst. They will work in partnership with scientists and
engineers from the University of Oklahoma, Colorado State University and the University of Puerto Rico,
Mayaguez, and corporate partners including Raytheon, IBM, Vaisala, and federal and state government
agencies to create the Center for Collaborative Adaptive Sensing of the Atmosphere (CASA). We will create
scalable prototype test beds to demonstrate the potential for DCAS to revolutionize our understanding,
detection, and prediction of hazardous atmospheric phenomena with end users involved from the outset.
CASA meets the NSF Broader Impacts Review Criteria through: comprehensive education and outreach
programs that introduce systems based engineering to K-12 students via the mandated engineering/technology curriculum in Massachusetts, and serves as the mechanism for expanding participation by under represented groups in engineering and scientific endeavors at all levels. Further, it will engage first responders and other end users through the provision of both technology and training. CASA will address the observation, prediction and response of weather, an issue that affects between 10 percent and 30 percent of the U.S. gross national product.
Our management structure has the flexibility to take advantage of our broad partnership. For example,
CASA will collaborate with industry partners, who, in turn, will create new product lines and services
based on our new paradigm for sensing, analyzing, predicting and responding to atmospheric hazards in
the troposphere.